Structure of the Hagia Sophia from the Age of Justinian to the Present

Principal Investigators proposed to study Hagia Sophia, a historical structure built in the 14th Century. Numerical and experimental analyses are used to model the dynamic responses. Stiffness degradation is to be quantified. Computationally intensive inverse analysis is to be used to delineate material properties.